The Development of a Hands On Experiential Environmental Study Program

The Environmental Study program emphasizes "hands-on" experiential science instruction and involves students in research projects in the areas of biological science, meteorology, conservation, and astronomy. Appropriate field equipment is being purchased to support this diverse program. Projects involve individual and class research with the steps of selecting a problem, literature review, research procedure, data compilation, discussion of results, summary and conclusion. Research papers will be written and reported. This program allows students to experience the scientific method directly through field research. This fosters the students' interest in science, and their development of an understanding of environmental science which will allow for wise environmental and natural resource decisions. The college will contribute an amount equal to the award.